Search for Gravitational Strength Forces Below 1 cm

Experiments will be conducted to test Newtons law of gravitation at
inter-mass separations of less than one centimeter. For separations
between one centimeter and one tenth of a millimeter, the experiments
will be sensitive enough to detect gravity and to test for deviations
from Newtons inverse-square law. For smaller separations the
experiments could detect proposed new short-range forces stronger than
gravity but still many orders of magnitude weaker than other known
forces. The investigators will first complete on-going experiments with
an existing room temperature apparatus, and then construct a new
cryogenic instrument with greater sensitivity. A planar tungsten
torsional oscillator is used as the sensitive force detector. There is
currently intense interest among theoretical physicists in the
possibility that there may exist new feeble forces at length scales
below one centimeter. String theory, which seeks to encompass all
known physics including gravitation, generally predicts light fields
called moduli. When these acquire mass through certain mechanisms,
they may mediate forces with a range of about one millimeter.
Detecting such forces would provide dramatic evidence for string
theory.

Theorists have also proposed that there may exist several new compact
spatial dimensions beyond the usual three, and that gravity is weak
because it is able to spread out in the extra dimensions. When the
number of extra dimensions is two, this view leads to large deviations
from Newtons law of gravitation at about one millimeter. Experimental
evidence of the predicted deviations would be a dramatic step forward
for our understanding of fundamental physics.